REU Site: Shannon Point Marine Center

9424050 SULKIN This is a renewal of a REU SITE project that provides research opportunities with an emphasis on nutrient flux/mass energy transformations, crustacean larval biology and hydrocarbon contamination in marine environments, to acquaint the students with the excitement and opportunities of academic research and to encourage them to pursue graduate studies and a career in research.